RUI: Self-Consistent Applications of Equations of Motion toCollective Motion in Even-Mass Nuclei (Physics)

Dr. Rolnick is a major contributor to the equations of motion method as the basis for a microscopic description of collective motion in groups of fermions. He is particularly interested in the application of this technique to the study of odd-mass and even-mass nuclei near closed shells. The equations of motion method has not lived up to its earlier promise because of problems related to backward going states and overcounting. In collaboration with Professor Klein of the University of Pennsylvania, Dr. Rolnick plans to investigate these problems, so as to make the equations of motion method a more useful technique for studying many-fermion systems. Techniques for investigating the properties of many- particle systems are of great interest and importance. A technique of considerable promise and application, particularly in nuclear physics, is the equations of motion method. The planned research would resolve some of the difficulties limiting this approach, so that it will be more useful. The research experience gained by Dr. Rolnick will also assist him in this teaching and advising at Deep Springs College.